RIA: Thermal-Mechanical Analysis of Cohesive Soils: A RobustMethodology

The primary objectives of this study are to develop a general but practical method for the analysis of isotropic, saturated cohesive soils which take into account not only material nonlinearities and thermo-mechanical coupling, but also time-dependent characteristics of soil; to develop an efficient numerical implementation of the proposed analysis method; and to verify this method by comparing numerical simulations to results of laboratory and field investigations. A generalized elastoplastic-viscoplastic bounding surface formulation will be extended to realize these objectives to advance the current state of the art in the simulation of heat and fluid flow through a deforming porous medium.